Collaborative Research: The Genetics of Postmating, Prezygotic Isolation

Research over the past 20 years has shown that trait differences acting after copulation
but before the fusion of sperm and egg nuclei, often termed postmating, prezygotic trait
differences, play a primary role in reducing gene exchange between populations within
a species and between closely related species. The genetic basis of these trait
differences is poorly understood and thus, constitutes the primary goal of Marshall and
Howard's research plan. Specifically, the proposed research focuses on identifying the
seminal fluid and sperm proteins that differ, whether in abundance or structure, between
closely related ground cricket species that are isolated by postmating, prezygotic trait
differences. Once identified, gene silencing technology will be used to evaluate the
function of each protein and its influence on preventing or reducing fertilization between
species.

Barriers to fertilization have been intensively studied in the Allonemobius socius
complex of crickets, providing an excellent model for evaluating the genes and proteins
that underlie successful fertilization. Understanding the genetic basis of fertilization
incompatibilities between populations and species can provide insight into a wide-range
of topics, including the development of infertility within species (including humans) and
the role of sexual selection and sexual conflict in driving the divergence of fertilization
proteins. The project provides training for undergraduate and graduate students and
outreach to K-12 schools.